Molecular Basis of Cyanide Assimilation in Pseudomonas Bacteria

MOLECULAR BASIS OF CYANIDE ASSIMILATION IN PSEUDOMONAS BACTERIA The fundamental goal of the proposed research is to establish the metabolic mechanism of cyanide transformation in two different Pseudomonas bacteria. Although it has been recognized for some time that microorganisms are capable of assimilating cyanide as a source of nutrition, very little is actually known about the molecular basis of this ability. Work in our laboratory has shown that bacteria capable of utilizing cyanide as a sole nitrogen source occur readily in nature, but the mechanism of assimilation is unknown. Other investigations have indicated that assimilation is oxygenase-mediated, but this has yet to be confirmed. The present work is aimed at further defining the metabolic basis of this ability by (i) chemically identifying conversion products, (ii) identifying the kinds of enzymatic activities responsible for conversion, and (iii) identifying the combination of chemical (e.g., radiolabelling, 13C-NMR), biochemical (e.g., biotransformation assays, inhibitor studies, SDS-PAGE) and genetic approaches (mutant analysis). New information on the fundamental microbial basis of cyanide metabolism is expected, which given the importance of cyanide as both an environmental toxicant and participant in prebiotic evolution, is of significant scientific merit.//